An Undergraduate Computer Security Track

We are developing and implementing an undergraduate Computer Security track at the Department of Computer and Information Sciences of Towson University. We are developing this track in close collaboration with our consultants and evaluators from industry and academia and are disseminating the results at conferences and at a forum for representatives from industry, government and academia, organized at the conclusion of this project.

Seven courses are the key components of this track: Computer Ethics, Introduction to Computer Security, Introduction to Cryptography, Network Security, Database Security, Operating Systems Security and Security Seminar. The first two courses exist. The network security course and a portion of the Operating Systems Security course are being adapted from courses at the University of Idaho, which was designated as one of the Centers of Excellence in Information Assurance. The principal investigators are developing the remaining courses. Students graduating in this track have a strong background in the foundations of computer security and their applications and are better prepared to join the 21st century workforce.